Shipboard Oceanographic Instrumentation

9988481
Freitag
This award to University of Rhode Island will provide instrumentation for oceanographic research for use on R/V Endeavor, a research vessel operated by the university's Graduate School of Oceanography as part of the University-National Oceanographic Laboratory System research fleet. Specific instrumentation to be acquired includes a spare CTD system, including both underwater and surface electronics, for use with both the Endeavor's CTD system and the portable undulating vehicle operated by URI, and a remote control system for operating the undulating vehicle winch (with video camera and monitors). The shared-use instrumentation supported here will assist marine scientists conduct studies, particularly in the northwest Atlantic, but also from ships of opportunity elsewhere in the world, during 2000 and future years.
***